SBIR Phase II: Biosensor Device for Recordation of Handwriting

This Small Business Innovation Research (SBIR) Phase II Project proposes the construction of a biosensor device prototype that will produce text from electromyographic (EMG) signals recorded from hand muscles. This biosensor device will enable the user to enter text into a computer or a mobile device without the need of special paper, pen, or other devices to track the pen. Recent advances in various technologies have made it practical to develop the EMG detection and analysis techniques suitable for character recognition. Taking advantage of advances in electrophysiology, pattern recognition, signal processing, and computer engineering, this project proposes to develop a practical system to decipher the EMG signals generated by biosensors mounted in the digital glove. The project will use the test bed system that was developed during Phase I project and helped to prove the concept. The knowledge of hand EMG patterns of various characters that were gained during Phase I will be used in the development of hardware device. The development will be conducted in the areas of Data Collection, Data Representation (preparation), and Data Analysis. The improvements are expected in all three areas, due to the use of more advanced electrodes, data processing filters, and the application of Neural Networks algorithms.

The proposed approach will remove several limitations faced by current technology and should provide a more durable, flexible, accurate, and user friendly product that can be easily adapted to different users for taking notes, or writing SMS messages for cell phones. The technology will significantly impact the condition of Carpal Tunnel Syndrome, a common occupational illness being reported among typists. EMG-based fingerless glove can also be used as alternative communication device by disabled people who are not able to talk, or who have hearing problems. The resulting product has many applications in education, medicine, tele-robotics, and can be used by mobile workers. As a wearable computer device, this product will help to improve users' image and self esteem. This research project will contribute to the better understanding of muscle interactions. Finally, the handwriting application that will be developed, can become a test bed for analyzing and comparing various pattern recognition algorithms, including traditional statistical algorithms and neural networks, for example Self Organizing Maps (SOM), State Vector Machine (SVM), or Time Lagged Recurrent Networks (TLRN). These algorithms already have numerous applications in various fields.